University of Chicago Program for Mathematically Talented Junior High and High School Students

9452755 Sally The University of Chicago will initiate a four week, commuter, Young Scholars program in the fields of mathematics, physics, and computer science which will offer science enrichment activities for 108 students entering grades 7-12. The program will emphasize research participation in mathematics. The mathematical focus will be on number theory, with the content and sophistication varying according to the grade level of the participants. Students will be provided with a rich and diverse experience in mathematics, physics and computer science.